Presidential Young Investigators Award: Particle Size Distribution Modelling and Control

This PYI award is for research in the general area of particle growth, aggregate densification, and sintering. The work will be modeling using population balances for the distribution of particle properties. Particle dynamics is of importance to high performance ceramics, biochemical processes, and crystallization.